Mini-Symposium on Nonlinear Analysis, PDE, and Applications; October 2009, Lubbock, TX

This award provides support for the ninth annual meeting in the series of Red Raider Mini-Symposia, held 29-31 October 2009 at the Texas Tech University. The conference encourages and financially supports participation by students, recent Ph.D. recipients, and members of groups underrepresented in mathematics.

The meeting includes invited lectures on topics of current research interest in applied analysis. The event brings together outstanding scholars currently making extensive contributions to the field, early career mathematicians, and promising young scientists.

Conference web site: http://www.math.ttu.edu/redraider2009/